Study of Models for the Biological Interactions of Weak Electromagnetic Fields

9419314 Adair The P.I. will make a theoretical study of possible interactions between weak electromagnetic fields at various frequencies and biological systems. This will allow first-principle models to be constructed that can guide and constrain studies of possible deleterious effects on the human population. ***